CIF: Small: Power Consumption in Communication

Power consumption is an increasingly important issue across society.
For communication, as the ranges of links in wireless networks
continue to shrink, the power consumed in the encoding and decoding
becomes a decidedly nontrivial factor in the choice of system
architecture. This is particularly important in settings such as
wireless patient monitoring, personal area networks, sensor networks,
etc. Shannon's classical information theory only established the
tradeoff between rate and transmit power as the probability of error
goes to zero and the block-length goes to infinity. This research is
about giving new conceptual tools for reasoning about the power
consumption in encoding and decoding as well. The core idea is that in
the age of billion transistor chips, the proper metric for complexity
is the power consumed by the implementation.

Just as simplified channel models have enabled sophisticated analysis
that has revealed deep insights into error correction and transmit
power, this research develops simplified implementation models that
are amenable to analysis. This reveals the fundamental tradeoffs
underlying the interplay between transmission and processing
powers. Crucially, the models developed are compatible with modern
approaches to iterative and "turbo" decoding by massively parallel
ASICs, while also not being limited to just the currently known
families of sparse-graph codes. By developing a unified mathematical
framework, this research allows us to understand the total power cost
of meeting performance objectives like high rate, low distortion, low
delay and low probability of error. This in turn leads to an
understanding of how to better engineer wireless systems as a whole:
opening up avenues for collaboration between circuit designers,
communication theorists, and networking researchers working at higher
layers.